Mathematical Sciences: Nonlinear Systems with Emphasis on Semiconductor Modeling

This research will study the analysis, modeling, and computations of the simulation of semiconductor devices. These devices are routinely used to design new, faster, and smaller integrated circuits. These studies are at the basis of new developments in the implementation of frontier high technology.